POWRE: Synthesis and Electrical Property Characterization of Metal Oxide Thin Film Gas Sensors

This POWRE award by the Chemistry Division will support Dr. Jeanne M. Hossenlopp in developing the materials science aspects of her research in thin film deposition and characterization at Marquette University. The proposed work will result in an apparatus to measure the electrical properties of thin films exposed to volatile organic vapors under atmospheric conditions. In addition new procedures will be developed for deposition of tin oxide films using laser assisted chemical vapor deposition. Both graduate and undergraduate students will participate in this work and learn the fundamentas of gas sensor material chemistry thereby providing them with an integrative understanding of this area of science from both the materials and environmental science perspectives.